UNIDATA: Implementation of the UNIDATA PC McIDAS Weather System into the Broadcast Meteorology Program

Funds are provided for the purchase of three UNIDATA PC-McIDAS work stations to be used to enhance the teaching and research efforts within the Broadcast Meteorology Program at Mississippi State University. This program is designed to train television weathercasters through on-campus and off-campus courses. The PC-McIDAS work stations will receive weather charts and imagery via satellite and ingest, store, loop, analyze, and print the requested data. Broadcast Meteorology Program faculty and students will utilize the data in both the classroom and laboratory settings for on-campus students and in video tape format for off- campus students. Undergraduate and graduate meteorology courses and special meteorology courses for secondary education students will utilize the data. The current array of research being conducted by both faculty and students will increase with the new work stations and the ability to create local weather forecasts will expand. The weather graphics in the PC-McIDAS will also be transmitted to the Universities' mainframe and then sent to other terminals across campus through the Ethernet communication system, allowing a continuous monitoring of the current weather activity. Weather data and information will also be exchanged between MSU and other meteorological universities through the internet system.